Inverse Scattering Problems

9803219
Aktosun

It is proposed to study certain inverse scattering problems arising in
quantum mechanics and wave propagation. Such problems are governed
by the Schroedinger equation, its variants, the wave equation and the
telegraphy equation in the frequency domain. Using techniques related to
Riemann-Hilbert problems, operator factorizations, and spectral analysis
of differential operators, the aim is to recover coefficients appearing in the
relevant differential equations in terms of a suitable set of scattering data.
In addition to their practical importance in physics, engineering, and other
applied fields, these inverse problems contribute mathematical techniques
to various areas of mathematics such as nonlinear differential equations,
integral equations, boundary value problems, and applied functional
analysis.

The inverse scattering problems under study are motivated by their
important applications in many areas such as materials science,
nondestructive testing, acoustic imaging, seismology, geophysics, and
remote sensing. In materials science the solution of the inverse scattering
problem amounts to determining surface and subsurface structure of
materials by analyzing neutron beams scattered off the materials, for
example, helping to understand bonding of polymer components. In
quantum mechanics it corresponds to the determination of forces holding
molecules, atoms, and subatomic particles together by analyzing colliding
beams of particles. In remote sensing it helps to profile unknown targets
by analyzing acoustic or electromagnetic waves scattered off such targets.